Multimedia Modules for Enhancing Chemical Engineering Undergraduate Education

A set of multimedia modules ia being developed and is designed for use in core chemical engineering undergraduate courses (e.g., thermodynamics, fluid mechanics, process design and control). Each module typically consists of digital video, sound, animation, and text and stresses the connection between a traditional mathematical representation (e.g., as seen in textbooks) and a laboratory experience. These modules are being developed with Macromedia's "Director" package on PowerMacintosh machines. Each completed module can be placed on the World Wide Web by way of the client Mosaic for easy access by other educators.